Observation and Three-Dimensional Simulation of Site Amplification in the Salt Lake Valley, Utah

This is a combined observational and theoretical attack on the problem of amplification of seismic waves in sedimentary basins, using the Salt Lake Valley in Utah as our field laboratory. Ten three-component, broadband, digital seismographs will be deployed for at least six months in an X-shaped array extending across the sedimentary deposits in the valley and onto the hard bedrock in the surrounding mountains. Teleseisms and local and regional earthquakes and blasts recorded at these stations will provide important new data on site amplification in the Salt Lake Valley, and in particular its sensitivity to source location.